WCM SYMPOSIUM: New Frontiers in Functional Morphology of Molluscs, August 19-25, 2001, in Vienna, Austria

A symposium titled "New Frontiers in Functional Morphology of Molluscs," will be held at the second meeting of the World Congress of Malacology, in Vienna, Austria, in August 2001. The symposium will honor Drs. Vera Fretter and Ruth Turner, two outstanding women scientists who made significant contributions to the study of form and function of molluscs and laid the groundwork for a growing field of functional morphology research. The goal of the symposium is to focus attention on the vast potential of the use of molluscs as model systems in the study of form and function by providing a forum for putting forward new ideas and approaches, and proposing directions for future study. Symposium topics will range from bivalve and gastropod feeding processes to swimming mechanics in squid. This symposium will draw attention to the study of functional morphology, highlight new, innovative areas of research, and rejuvenate the field among the international group of malacologists who will be attending the World Congress.